Travel: NSF Student Travel Grant for 2024 New England Hardware Security Day (NEHWS2024)

The New England Hardware Security workshop is a regional, one-day conference designed to bring together hardware security researchers, industry participants, and students in order to develop connections and collaborations between these groups. This year's workshop will take place April 5, 2024, in Worcester, MA. This award will fund student participation in the workshop, increasing the number and diversity of students who can benefit from attending. Participating students will be able to present their work at poster sessions, allowing them to get feedback from a variety of experts.

This award will provide travel support to up to 100 students; the regional nature of the workshop further reduces travel costs, accommodating a much wider range of student participants in terms of their career stage and experience in hardware security than most conferences. In particular, the workshop will target early-stage researchers who are not yet attending national conferences, as well as students from disciplinary and personal backgrounds that might not otherwise think to attend a conference on hardware security. This will both increase the chances that participants take up hardware security topics in their future work, as well as provide participants with ways to connect with potential future employers.